Determination of Intensive Variables in Medium- to High-Grade Pelitic Rocks

The principal objective of this research project is to obtain precise determinations of the chemical equilibria that govern the observed mineral assemblages in pelitic metamorphic rocks. Behavior of the minerals cordierite, hematite-ilmenite, and andalusite-sillimanite at high pressures and/or temperatures will be elucidated by phase equilibria experiments, calorimetric measurements, theoretical modelling, and field studies. This research should provide constraints for mineral thermochemical data and should lead to more accurate quantification of the intensive variables of metamorphic rocks. The results of the research will ultimately find application in studying pressure-temperature-time paths, fluid flow, diffusion, and relations between metamorphism and deformation.